Coulomb Damping in the Design of Structures for Earthquake Induced Ground Motion

To dissipate vibratory energy in structures the coulomb damping or dry friction can be very effectively used. The friction can also be effectively used to control sliding in the base isolation devices of a structure during earthquakes. To extend the earlier studies, the bi- axial sliding and the effect of vertical acceleration under multicomponent excitations of more realistic multi-degree-of-freedom structures are necessary. Besides the study of the base isolation effects of a sliding foundation with Coulomb damping, it is also of interest to study the possibility of permitting the floor slabs to slide relative to the supporting frame with the purpose of dissipating energy as well as isolating the supported secondary systems. The idea of friction isolation and energy dissipation by using sliding floors is new and innovative. If successful, the concept could provide a viable alternative design procedure to reduce the vibratory effects of earthquakes on structures. This project covers only the essential analytical studies necessary towards gaining a sufficient understanding to the seismic response characteristics of structures having sliding floor slabs.